REU: Research Experiences for Undergraduates

This is a Research Experiences for Undergraduates project. It will provide research experiences for eight students at Northwestern University. Students will participate in projects involving microbiology and immunology.